Studies of Middle to Upper Cretaceous Ferns from the Dakota Formation (Biotic Systems and Resources)

Fossil ferns of the Dakota Group will be studied in morphological detail to determine their possible relationships. The material will be uncovered and macerated to extract the ferns, then the remains will be subjected to various types of treatment to prepare them for light, scanning electron and transmission electron microscopy. As much morphological information as possible will be obtained from these ferns. The localities will be recollected to obtain more material for possible bulk maceration and then sorted for any fragments of plant remains. Once the information has been collected for the ferns, they will be compared to closely related extant ferns and an analysis of characters using cladistic methods will be done. This analysis will aid in assessing possible relationships, primitive character states, and possible phylogenetic trees. Relating this study to previous studies of the ferns from the lower Cretaceous will make possible a hypothesis as to the changes in the fern flora throughout the Cretaceous and the potential impact of the angiosperms upon these fern floras. The interactive component involves a combination of activities as a professional researcher at the Florida State Museum and a professor in the Department of Botany. A seminar series cosponsored by the two groups will be used to bring women scientists in plant evolution to the university to present professional talks and to interact with the students and staff. Courses will be taught in the Department of Botany and interpretative programs aimed at school students will be offered at the Florida State Museum. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.